Rural Alliance for Improving Science Education - Track 1, GK-12

Title: Rural Alliance for Improving Science Education (RAISE)
Institution: Oklahoma State University
PI/Co-PIs: Thomas A. Wikle (PI), Joel W. Helmer and John E. Steinbrink (Co-PIs)
Fellow/Year: 10 (graduate)
School Partners: Perkins/Tryon, Morrison, and Hennessey Public Schools
Target: 6 through 12th grades
Setting: rural
Disciplines: interdisciplinary (Earth sciences, life sciences, general sciences)

Background: Despite recent implementation of statewide science education standards,
students from rural Oklahoma communities lag behind the nation in math and science
ability. Compounding the problem is a shortage of math and science teachers making it
necessary for teachers to offer subjects outside of their primary science teaching area.

Intellectual Merit of the Proposed Activity: The Rural Alliance for Improving Science
Education (RAISE) places outstanding graduate students (fellows) in 6-12 grade
classrooms to work one-on-one with public school teachers in three rural school districts.
Supervised by a committee of science teachers and faculty from Oklahoma State
University (OSU), RAISE builds on existing relationships among OSU faculty and K-
12 teachers established through POLARIS, a Department of Education sponsored project
for improving middle and junior high science instruction. The interdisciplinary area of
Geographic Information Science (GISci) serves as the focus for the development of
innovative science curricula with the goals of: 1) strengthening curricular ties among
ecology, biology, Earth science and environmental science, and 2) providing measurable
improvement in student performance on state-mandated science tests.

Broader Impacts of the Proposed Activity: RAISE targets rural school districts with
significant numbers of Native American students and high poverty rates. Fellows from
the Departments of Botany, Zoology, Microbiology, Geography, Geology, and
Environmental Science are completing their OSU degree with stronger communication
skills, an improved understanding of science pedagogy, and a greater appreciation for the
needs of both teachers and diverse learners. Lesson plans and other materials developed
by fellow/teacher teams will be disseminated regionally through summer institutes and
nationally through a project web site promoted via science education journals and teacher
conferences. The principal benchmarks for project success are: 1) student
improvement on science sections of the state-mandated Oklahoma Core Curriculum Test
and, 2) the number of teachers/schools throughout the state and nation that integrate
RAISE materials into 6-10th grade science instruction.